Young Scholars Program: Explorations in Mathematics and Biology

9553537 Shahin The College of Misericordia in Dallas, Pennsylvania, will initiate a four-week, residential Young Scholars program serving twenty students entering 10th grade in the summers of 1996 and 1997. The disciplinary foci are in biology and mathematics, emphasizing the use of difference equations and matrices to analyze biological relationships in animal physiology and homeostasis. Students will interact with scientists, teachers, career professionals, and college students and develop an appropriate research proposal for an investigation to be implemented the following academic year.